Development of a New Pore Pressure Transducer, Installation and In-Situ Dynamic Testing Procedures

CMS-9811153
Ben Hushmand, Hushmand Associates

A serious consequence of earthquake-induced strong ground shaking is the
potential soil failure known as liquefaction. In order to arrive at a
thorough understanding of this phenomenon, and to formulate and calibrate
analytical techniques to predict the occurrence of liquefaction and its
effects, data has to be measured at instrumented sites where the in-place
soil properties have been appropriately established, and where ground
motions have been recorded for an earthquake strong enough to have
generated significant increases in the pore-water pressures. Several sites
around the world (e.g., Treasure Island in California) are instrumented
with accelerometers and pore pressure transducers . The pore pressures
recorded at the Wildlife liquefaction site in California during the 1987
Imperial Valley earthquake, and subsequent investigations into the in-situ
dynamic behavior of pore pressure transducers, demonstrated the need to
develop a reliable pore pressure transducer design.

The goals of this research program are: (1) to refine and improve the
design and construction of a piezometer recently developed at the
California Institute of Technology (known as the "Caltech" piezometer); (2)
to refine the piezometer field installation and in-situ calibration
methods, (3) to provide standard methods and guidelines defining the
minimum requirements for the design, preparation, installation, and
follow-up in-situ calibration and maintenance of piezometers; and (4) study
the correlation between pore pressures generated in a saturated granular
soil and the liquefaction potential.

Following successful testing, two prototype piezometers will be
constructed and installed at the Treasure Island National Geotechnical
Experimentation Site, close to the existing pore pressure transducers, to
provide (1) additional instrumentation, and (2) a direct performance
comparison during future earthquake shaking of the "Caltech" transducer and
the existing transducers.

This project is being coordinated with a complementary research program
headed by Prof. Pedro de Alba at the University of New Hampshire.